1990 Aspen Winter Conference on Elementary Particle Physics;Aspen, Colorado; January 14-20, 1990

This award will support in part the 1990 Aspen Winter Elementary Particle Physics Conference; Aspen, Colorado; January 14-20, 1990. This conference is devoted on collider physics. Results from hadron colliders at Fermilab and CERN will be discussed as well as the results from the initial run of the new electron-positron colliders at SLC (Stanford) and LEP (CERN). Among others, sessions will cover the properties of the Z and W bosons, search for the top quark and prospects for development of new facilities for collider physics.